Institutional Responses to Market Imperfections in the Supply of Credible Medical Effort and Health Insurance in Africa

9422768 Leonard Without an adequate framework the market for medical services in Africa is inhibited, privatization can not fully develop, and patients and clinicians are unable to consummate relations that would benefit them both. The African state has a determining influence on these institutional structures. This research investigation explores how the existing institutions surrounding African medical practice do and could work and the political dynamics of their change. A model is developed of the demand for "credible medical effort" which is based on the value of future working potential. Incentive aligning contracts between the patient and the clinician are shown to achieve a superior solution to 'classical' markets in this unobservable good. The introduction of an institution which can collect 'hostages' of value to the clinician in a renegotiation-proof manner also is shown to be able to achieve a yet superior solution. Theoretical investigation on the necessary characteristics of such institutions identifies a range of possible alternatives. The project's model of the economic costs of illness allows examination of the role of emergency and long run credit as well as insurance in the purchase of health care. The role of the extended family in the willingness to pay for health care is tested. Traditionally viewed as an insurance scheme, it is hypothesized that the extended family may function as a source of emergency credit. This potential distinction has direct policy implications. Given these two economic tests, research is proposed at three sites. The structure and success of clinics in Tanzania, which are operated on a franchise basis, will be investigated. It is hypothesized, first, that the franchising observed is indeed an economic institution designed to provide credible medical effort, and, secondly, that patients exhibit patterns of use which are consistent with their awareness of an willingness to pay for its provision. Hou sehold surveys in Cameroon and Ethiopia will be administered to investigate both the awareness and willingness to pay for credible medical effort and the role of the extended family in the ability to pay for health care. At all three sites the politics of institutional change and the issue of what institutional structures are consistent with the managerial capabilities of the African state will be explored. ***